Models of Uncertainty Due to Lack of Knowledge

This research will investigate how people make judgments about the truth of statements when they have only incomplete knowledge. The problem arises very frequently in areas ranging from business to public policy to personal matters. As examples, an intelligence analyst may be asked for a probability judgment of whether Boris Yeltsin will remain in power in Russia for the next six months, an EPA official may have to set a pollution standard for a substance based on sparse knowledge of its health effects, or a physician may have to select a treatment plan given inconclusive medical data. The work will focus primarily on the cognitive processes of judgment and response selection. The research will develop psychological theories, based on prior work, that can be expressed as mathematical models, test these theories and models empirically, and modify them accordingly. The models will provide a framework for distinguishing the subjective degree of confidence one has that a proposition is true from the overt decision or response one makes or provides to someone else. One's degree of confidence depends on what one knows about the topic area, as well as on how that knowledge is organized and searched, whereas the response selection depends on motivational and related factors. One question this research will investigate concerns the relationships among certain documented phenomena. One is a covert bias to think statements are true. The other is an additional bias to call statements true relative to one's covert judgment (when the response options are limited to true or false), but not a bias to assign probabilities that statements are true (when the response options are numbers from 0 to 100). Another question concerns how a person's strategy for searching his or her knowledge base depends on the specific form and sequence of the judgment tasks that he or she faces. Additional issues the research will investigate include differences in judging past versus future events, the comparison of confidence in the truth of statements across knowledge domains, payoff effects on judgment and responding, and effects of degree and organization of knowledge on judgment. The long-range goal of the work is to improve the quality of judgments. It should become possible to combine the mathematical models of judgment to be developed in this work with derived measures of performance either to improve accuracy or to calibrate it in a manner that suitable corrections can be imposed.